"Integrated Tunable Laser/Modulators and Receiver/Preamps for Wavelength Division Systems"

WPC> 2 B V J Z Courier T ? x x x x 6 X @ K X @ QMS JetScript QMSJETSC.PRS x @ h h h h }X @ #| x 2 < 9222440 Coldren Recently, several novel schemes to provide tunable lasers with relative wavelength tuning ranges much larger than the achievable index change have been proposed. Such lasers are desired in high capacity wavelength division networks for applications in tele and data communications, and they may find use in optical sensors and memories as well as in spectroscopies applications. Two of the most promising structures have been studied at UC Santa Barbara. Wavelength tuning ranges> 30 nm have been demonstrated. Unfortunately, current funding for this and related programs has ended without any renewal prospect due to the sponsoring company's policy. One of the problems with such lasers is that they are difficult to directly modulate without simultaneously shifting the wavelength. Thus, it is desirable to integrate them with separately controlled modulator external to the laser cavity. At UCSB work on a simple and robust guide/antiguide modulator has indicated that is an excellent candidate for this function. Again, funding for this work has also ended. One goal of this proposed program would involve integrating this modulator with one of the tunable laser structures. It is shown that this can be accomplished with no extra processing steps.